Interagency Agreement between the Council of the Inspectors General on Integrity and Efficiency (CIGIE) and Office of Inspector General (OIG), NSF

This Interagency Agreement with the Council of the inspectors General on Integrity and Efficiency (CIGIE) is to support the management, operational, training, and contractual services necessary for an effectively functioning Council, to be performed by the CIGIE's operations staff.